LightPower: An Exhibit on Light, Lasers and Optics

9453034 Deigl LightPower is one of twelve permanent exhibits being developed for the new Orlando Science Center (OSC) in Orlando, Florida. A 4,000 square foot exhibit, LightPower places lasers in their broad scientific context by focusing on light, the electromagnetic spectrum, and on lasers and their applications. Because of the large number of laser-optics research facilities and corporations in the Central Florida region, the exhibit also includes The Optics Workbench, a career-themed activity center which emphasizes careers in optics and in scientific and technical fields that utilize lasers. LightPower is being developed by a partnership that includes the Orlando Science Center, the Orange County Public Schools, and the Center for Research and Education in Electro-Optics and Lasers at the University of Central Florida. The partnership will develop, prototype, and evaluate interactive exhibit components and associated text and labels in English and Spanish; and will develop, evaluate, and distribute hands-on career-related activities in English and Spanish for students and teachers. The goal of the LightPower exhibit is to contribute to the educational infrastructure of the Central Florida region by: - Developing an interactive exhibit that facilitates learning by a diverse public, including African Americans and Latinos, and successfully communicating with both English and Spanish-speaking audiences. - Supporting middle school, junior high, and high school science curricula, and producing and distributing printed materials that detail the relationship between exhibit components and specific curriculum performance standards. - Developing successful hands-on career-related activities for students and teachers in both English and Spanish.